Purchase of FTIR Instruments for a Vibrational Spectroscopy Facility

Fourier Transform Infrared (FTIR) spectroscopy is a technique that uses absorption of infrared energy to probe molecular structure. The acquisition of an FTIR spectrophotometer is crucial for enhancing the research environment of the modern chemistry department. In the Department of Chemistry at the University of North Carolina at Chapel Hill, the FTIR instrument will be part of a facility containing FTIR and Raman instrumentation and will enhance front-line chemical research in the following areas: 1) Low temperature Infrared Spectroscopy of gas phase, diffusion trapped molecules. 2) Vibrational studies of ligand coupling reactions. 3) Peptide and protein synthesis. 4) In situ vibrational spectroelectrochemistry of electroactive films and of functioning solid state electrochemical cells.